The Electric Dipole Moment and PNC Spin Rotation of the Neutron

This grant to a University of Washington faculty member will support an extension of measurements of the neutron electric dipole moment using cold neutron beams at the Institut von Laue-Langevan High Flux Reactor. The measurement is of fundamental importance in establishing limits to parity and time reversal symmetry violation. In addition, measurements will be undertaken to study the parity violating interaction of neutrons with helium nuclei by measuring the parity nonconserving neutron spin rotation in a liquid helium target.